AP Chemistry by Satellite

Students from small high schools are often educationally disadvantaged when they reach college because their schools lacked the resources required to teach those advanced courses that would have helped them succeed in college. This project will determine whether live instruction-by-satellite is a viable means of providing high school students with an advanced course in chemistry. The opportunity will be offered to schools which are too small or lack resources to provide Advanced Placement Chemistry, but which do offer one year of the subject. The format will be designed to incorporate as many of the desirable features of live classroom instruction as are possible. It will include video- and computer-based learning experiences for students that usually cannot be done in a live classroom. Students will be able to ask questions and respond to their distant instructor during each telecast. They will do experiments in their own school laboratories and will exchange data using computers. Local supervision will be the responsibility of the school's "first-year" chemistry teacher who will interact with the University as a cooperating teacher. It has recently been shown that one of the strongest correlates with persistence at the college level in the study of mathematics and the sciences is the opportunity for the student to take Advanced Placement or Honors courses in the subjects. By allowing students in rural schools to have this experience, the project addresses two important issues: human resources and equity.